Collaborative Research: Testing General Relativity with Gravitational Wave Observations

Gravitational waves from colliding black holes provide an unprecedented opportunity to study gravity under the most extreme conditions found in nature. By analyzing these signals, it is possible to determine whether Einstein's theory of General Relativity remains valid when spacetime is highly dynamical and strongly curved, or whether subtle deviations reveal new fundamental physics. This research will develop new methods to extract the maximum scientific information from gravitational-wave observations made by the LIGO-Virgo-KAGRA observatories and future observing runs. Improved tests of gravity will deepen understanding of black holes and the fundamental laws governing the Universe while strengthening the scientific foundations of gravitational-wave astronomy. The project will also provide advanced training for graduate and undergraduate students in data science, statistics, artificial intelligence, and computational physics, helping prepare a highly skilled STEM workforce with expertise applicable across science, engineering, and industry.

The research will develop and apply new statistical and computational methods to perform precision tests of General Relativity using the inspiral, merger, and ringdown phases of binary black-hole coalescences. The work includes principal-component analyses of parameterized post-Newtonian deviations to obtain optimal constraints on possible departures from Einstein's theory, hierarchical Bayesian methods that combine the information optimally from populations of gravitational-wave events, and analyses of higher-order gravitational-wave modes that probe the nonlinear structure of gravity. In addition, new time-domain ringdown models informed by numerical relativity will be developed using machine-learning techniques to test whether the remnant object is consistent with a Kerr black hole, and to search for deviations from the black-hole no-hair conjecture. These complementary analyses will provide one of the most comprehensive and stringent probes of strong-field General Relativity using current and forthcoming gravitational-wave observations.